Interagency Education Research Initiative: Planning Grant for National Data Collection Center

This project will plan a data collection center (DCC) to coordinate measurement instruments, facilitate research design planning and problem-solving, and coordinate the analysis of data from multiple projects within designated subject areas; it will also provide assistance in dissemination and utilization of research project results. We propose to focus upon: (a) designing a national data base (IERI Data Base), (b) designing an interactive portal to facilitate research collaboration (IERI Portal), and (c) designing an analytic workbench that performs selected data analyses (IERI Workbench).

The project will consider a database that includes all IERI funded projects' proposed measures and student and teacher demographics; and guidelines for investigators to follow to compile their data for analysis and for reporting research results. The project is also considering an IERI Portal to provide IERI investigators, IERI program officers, and the scientific community with a collaborative environment for learning about ongoing and proposed research issues. The last consideration is an analytic workbench of software tools that specializes in (a) meta-analyses of intervention approaches and outcomes, (b) qualitative analyses of promising interventions and approaches, (c) selected secondary analyses of the planned national data base, and (d) identification and recommendation of future research directions.